National Center of Excellence for Logistics and Supply Chain Technology Education

The National Center for Supply Chain Technology Education is a consortium of five strategically located community colleges across the nation with robust programs preparing technicians for careers in private and public sector supply chain technology. The institutions are: Norco College, CA, Sinclair Community College, OH, Oakton Community College, IL, Jefferson Community and Technical College, KY, and Tacoma Community College, WA. The supply chain technician workforce is over 11 million workers and is expected to grow during the next ten years. The Center engages strategic partners nationally across the private and public supply chain continuum: manufacturing, distribution, warehousing and information technology, A 2+2+2 model supply chain career pathway is developed with educational partners at all three levels to provide education for positions beyond the entry level. Professional development is provided for faculty at all three educational levels. Successful practices are disseminated through face-to-face and electronic means. Evaluative activities measure the progress of the Center toward its goals.